REU Site: Optical Materials, Lasers and Their Application in Optical Sensing

Oklahoma State University continues operating a Research Experiences for Undergraduates (REU) Site. The theme of the REU Site is Optical Materials, Lasers and their Application in Optical Sensing. The Site is hosted by the Department of Physics and the Center for Sensors and Sensor Technologies at OSU. Ten undergraduate students are recruited every year for a ten-week summer research experience. Student research projects address optical, electro-optical, radiation-sensitive, biological and colloidal materials with present or potential applications in optical, laser and sensor systems. In addition to participating in individual research projects, REU students attend research seminars and field trips to nearby industrial research facilities.

This REU Site is supported by the Department of Defense in partnership with the NSF REU program.